SBIR PHASE II: Low-Cost Polymer Matrix/Fibrous Composite Manufacturing Process

94-06538 Allred This Small Business Innovation Research (SBIR) Phase II project addresses production technology for low-cost thermoplastic prepreg materials tailored to object-fabrication requirements. Phase I showed the feasibility of producing low-cost thermoplastic, powder-impregnated tows with a variety of fibers and polymers. Cost reduction is achieved through processing at high speeds with particle sizes larger than presently used with powder-impregnated materials. In Phase II control parameters will be studied for the impregnation process tailored to fabrication by filament winding, pultrusion, braiding, weaving, and molding. Sizings to improve fiber adhesion to thermoplastic polymers will also be examined. Results of these studies will be used in design of a large-scale process Phase III demonstration under private sector support. Commercial applications of low-cost thermoplastic composite materials are expected in construction, transportation, sporting goods, aerospace, marine, chemical, medical, and military industries.